Study of Roles of Magnetic Fields in Pulsations of roAp Stars

9414037 Zita The rapidly oscillating peculiar A stars, known as roAp stars, exhibit small amplitude brightness variations with periods of minutes or tens of minutes. While this behavior is similar to the p-mode oscillations observed in the sun, a different excitation mechanism must be involved. The PI suggests that magnetic fluctuations are a strong possibility. She has shown that the conditions in the envelopes of the roAp stars are suitable for this mechanism. With the support of this Research Planning Grant she will establish the initial and boundary conditions needed to model the dynamics of the roAp star envelopes and produce some test models. ***